NSF Career Writing Workshop

The PI is using this award to organize a one-day workshop on writing successful NSF CAREER Proposals. The proposed workshop is to be conducted on May 18th, 2012 near Arizona State University, Tempe, AZ.

The objective of this workshop is to bring together experienced proposal writers, recent NSF CAREER awardees, program directors from the NSF, and young faculty who are interested in gaining knowledge on how to turn their visionary ideas into successful CAREER proposals and jumpstart their successful careers.